Mathematical Sciences: Index Problems for Manifolds with Conical Singularities

Robert Seeley will carry out research in certain differential operators with strong singularities. These arise naturally in a variety of geometric and physical problems. A geometric example is provided by the manifolds with conic singularities. The classical Dirac monopole and conformally invariant field theories are sources of physical examples. The research will involve index problems for first order singular operators. Seeley has recently been involved in developing a technique for computing the index of such operators. He will continue to develop this technique and seek extensions to the case of iterated cones where the cross-section has a conic singularity. He will also consider families of regular operators degenerating to a nonsingular limit.